CAREER: Semi-Active Control with Independently Variable Stiffness and Damping Systems: Analytical and Experimental Study

The objective of this Career Research Project is to develop innovative semi-active structural sysems for earthquake protection, in which stiffness and damping can be varied independently, using a newly developed novel semi-active independently varible stiffness and damping device (SAIVSD). The existing semo-active variable sstiffness and damping devices for response control is limited because the stiffness and damping are either closely coupled or variation of only damping or only stiffness is possible. Research will be carried out to (1) study SAIVSD device experimentally and analytically; (2) develop control algorithms; (3) implement the device with real time control systems in scaled building models representing fixed base and base isolated buildings and bridges; and (4) evaluate the performance of the new system by shake tabletesting and numerical simulations. The comprehensive nature of this study will permit the evaluation of the capabilities of device and the advantages and disadvantages of using such devices in structural systems. Semi-active control systems have significant potential for practical implementation for earthquake protection in the near future. The research would contribute to the development of new and innovative semi-active control systems . The research will bee performed in clos collaboration with the industry which will accelerate the implementation of semi-active control system and hybrid isolation systems. The integral compnents educational compnents include (1) furher development of innovative teaching software BEST an usage in dynamics corse; (2) introduction of new advanced software into undergraduate and graduate course to enhance learning experience of students; (3) promote hands-on experimets in dynamics for effective learning; (4) development of a new earthquake engineering and structural control course ; (5) introductio if interesting concepts in dynamics to undergraduate and school students; and (6) coordinated out re arch activities including presentations at area schools and laboratory tours. The educational program is aimed at enhancing the learning experience of graduate, undergraduate, and school students.